Wind River Conference on Prokaryotic Biology, Allenspark, CO June 4-8, 1997

Yasbin 9722500 The 41st annual meeting of the Wind River Conference on Procaryotic Biology is to be held at the Lazy H Ranch, Allenspark, Colorado, June 4-8, 1997. 8This conference is primarily concerned with the biology of prokaryotes, and is the major annually occurring meeting devoted to this subject area. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Specifically to address this problem, funds will be used to provide travel and support scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas that comprise prokaryotic biology.